Multi-Phase Flow Dynamics in Polymer Electrolyte Fuel Cells

ABSTRACT - 0414319

With the potential for high power density and efficiency, fuel cells hold tremendous
promise for future portable, automotive and stationary applications. Among fuel cell types, the
strongest candidate for portable applications is the direct methanol fuel cell (DMFC), while the
hydrogen polymer electrolyte fuel cell (H2 PEFC) is the strongest candidate for stationary and
transportation applications. The minute length scales and complex materials in these fuel cells
present many unique and challenging physicochemical issues. In particular, two-phase flow
effects through the thin-film porous carbon fiber gas diffusion layers (GDLs) present a major
microfluidic management bottleneck for achieving high power density and stability. The GDL is
a critical component and functions to deliver reactant to, and product away from, the electrodes
where electrochemical reaction occurs. If product transport through the GDL or flow channels is
insufficient, reactant mass transport will be restricted, limiting performance. For example, CO2
gas production at the anode of the DMFC can block transport of liquid methanol solution to the
reaction site. At the cathode of the DMFC and H2 PEFC, liquid water from electrochemical
reaction, electro-osmotic drag and diffusion can severely limit performance by flooding the
cathode, starving it of oxygen. In both the DMFC and H2 PEFC, there is a complex two-phase
flow challenge to manage the transport of reactants and products through the thin-film porous
GDL and in the flow channels. As a result, the naturally hydrophilic GDLs are typically tailored
by addition of hydrophobic material during processing. To date, the fraction of hydrophobic
additive is determined through inefficient trial-and-error testing. The existing literature has also
followed a phenomenological approach and has yet to yield any clear rationale or fundamental
knowledge of the basic transport processes of bubbles and liquid droplets through the GDL, at the
interfacial boundaries between the GDL and the flow channel, or in the flow channels.

We propose to initiate an experimental and analytical study of the two-phase flow of gasphase
bubbles and liquid-phase droplets in reactant flow channels and thin-film porous media
with tailored wetting properties. We will use high-speed microfluidic flow visualization
techniques and a model fuel cell to experimentally quantify parameters such as bubble/droplet
shape, detachment size, transport rate, distribution, and liquid saturation in the porous material as
a function of operating conditions. Analytical models will then be developed to describe the
bubble/liquid droplet dynamics and validated using the novel data obtained from a highly
instrumented fuel cell. The ultimate goal of this research is to provide, for the first time, design
theory based on fundamental understanding that can be used to engineer fuel cell materials and
empower microfluidic management for next-generation fuel cell systems. This would represent a
significant leap in understanding of one of the most critical areas currently limiting fuel cell
development and would impact portable, stationary, and automotive fuel cell design.

The objectives of our integrated approach to research and education are to: 1) create a
physical and intellectual infrastructure for addressing a multidisciplinary technical junction in the
design of next-generation hydrogen or methanol polymer electrolyte fuel cells; 2) train graduate
and undergraduate students in physical/chemical science fields highly relevant to current national
needs; 3) integrate cutting-edge research results directly into three established courses at Penn
State and enable supported graduate students to present material in the undergraduate courses; 4)
expand the role for fuel cell and microfluidic research programs at PSU in undergraduate and
graduate recruiting process; and 5) provide significant opportunities for undergraduate/graduate
students to interact with industry through existing and future Electrochemical Engine Center
industry collaborations.